Assessment of Research and Applications on Natural Hazards

This research will take stock of existing knowledge in applicable fields of knowledge on natural hazards, for example, physical science, social science and engineering. It will assess the state of applications of that knowledge in the nation at relevant levels of human aggregation. It will determine research and applications priorities given prevailing contextual realities such as national and global trends, the potential for being applied, likely payoff, and existing constraints and incentives. This is the first phase of the effort and will involve a workshop to determine proper direction for the assessment proposed.